Doctoral Dissertation Research: A Comparison of the Gendered Consequences of Migration in Two Regions of Indonesia

9406597 LAWSON Households frequently migrate from one residential location to another in search of better employment opportunities, but relatively little attention has been given to examining the ways that the different roles of women and men in households affect their expectations before they migrate and their experiences after they migrate. Of particular concern are the ways that different household roles and responsibilities for women and men impinge upon their participation in the labor market, influence their spatial mobility and their choice of destinations, and affect their lives and household relationships after they have moved. This doctoral dissertation research project will compare gender-related facets of migration within households and within labor markets in two different parts of Indonesia. The study areas include both semi-urban and rural areas. During lengthy visits to each study area, in-depth interviews will be conducted with both women and men and ethnographic data will be collected and analyzed in order to obtain information about income levels, relative allocations of time, and other variables before and after moves. These site-specific data will be analyzed with reference to census and independently gathered village-level data to ensure that the local samples are representative of broader populations. During the conduct of this work, the doctoral student will collaborate with researchers at Indonesian universities in Jakarta and Ujang Pandung. This project will make a number of important contributions. The comparative case studies will shed new light on the dynamics of social and economic change in parts of Indonesia that have experienced significant rates of in-migration in recent decades. Because of the careful way in which the studies are structured, the project will contribute to more general understandings of gender-based differences in the migration experience of lower- income residents in developing nations. As a doc toral dissertation research improvement award, this award also will provide support to enable a promising student to establish a strong independent research career.